Improvement in the Conceptual Unity of the Physics Curriculum

This project is improving the Kirkwood Community College physics curriculum by emphasizing laboratory experiences that unify content and methodology. Specifically: 1) laboratory experiences emphasize the time variable as a unifying concept; 2) laboratory and lecture topics are being more closely linked; 3) students are using only a few data gathering instruments and data analysis methods for many experiments throughout the course; and 4) physics data analysis software is the same as that being used in mathematics and engineering courses.This improvement in physics laboratories is being accomplished with the purchase of three IBM computers with velocity, temperature, force transducers, and real-time interfaces.This project is significant because it provides conceptual unity, unity in laboratory instrumentation and unity in data analysis techniques. The instrumentation is facilitating data gathering and analysis so students are able to concentrate on experimental design, problem-solving and understanding concepts.